Travel Assistance for CKM2005 International Workshop: March 15-18, 2005; San Diego, CA

The proposal is a request for support to help cover the costs of travel for senior graduate students and post-docs to attend the 3rd workshop on CKM Unitary Triangle and CP Violation. It will take place from March 15-18, 2005 at UC San Diego, CA. The funds will be used to help support graduate students and post-docs who otherwise could not afford to attend the meeting.